REU Site: Multidisciplinary Research Experiences for Undergraduates in Structural Tissue Engineering

The Pittsburgh Tissue Engineering Initiative (PTEI) 10-week REU site program will provide undergraduate students a fundamental understanding of underlying biological and engineering principles of structural tissue engineering (TE). The PTEI REU will expose students to real-world problems and solutions applications increase the satisfaction students get from their education, and stimulate them to continue working on exploratory projects. By working as a team member in a highly interdisciplinary research environment, undergraduate students become active in developing practical solutions beneficial to society, providing an initial glance at how they might apply their knowledge. Undergraduate students will be mentored by faculty, graduate students and postdoctoral trainees.

To enhance the research experience, a variety of activities have been incorporated, i.e. seminars and workshops designed to introduce students to and inform them about "hot topics" in TE and career opportunities in academia and industry. Participants will also take a short course to address the interdisciplinary nature of TE and issues not addressed in standard undergraduate engineering and science curriculum. Several cultural and social activities are planned for students which will help foster the cohort experience. At the end of the REU program students will be required to give a 3-5 minute oral overview of his/her research project, prepare and submit an abstract, and present a research poster. Finally, REU participants will receive a program completion certificate.

What are the broader impacts of the proposed activity?
The primary goal of this REU program is to enhance the exposure of underserved and underrepresented minorities, to include students from two-year community colleges, and non-research based 4-year institutions, and U.S. Veterans who are returning to active duty to collaborative, interdisciplinary research in structural tissue engineering.

Research outcomes will be disseminated by presentations at the final poster session, professional meetings, and publications with undergraduates as co-authors and/or credited for their contributions.